Theme-Based Bidisciplinary Chemistry Laboratory Modules

9455693 Leber The fundamental tenet of this project is that student interest in science will be aroused and their understanding of the scientific method enhanced by the introduction of multi week bidisciplinary laboratory modules at the end of each semester in the introductory chemistry sequences general and organic chemistry. The laboratory modules are organized around themes that have broad-based relevance: water analyses due to environmental concerns, plants assays in response to environmental matters and biochemistry interest, and drug design in recognition of the large pre-medical student population among the students enrolled in the introductory chemistry courses. The laboratory modules are designed to imitate aspects of research by allowing students latitude in formulating specific goals for the project, by incorporating a longitudinal component to the study for establishment of a qualitative and quantitative database, and by forging research teams both within the individual teaching laboratories and also by bridging students groups in related science disciplines.